NJIT Undergraduate Research Program

The project involves 10 undergraduate students from both NJIT and associated institutions. The research involves thermodynamics, enzyme kinetics computer modeling, corrosion science, and synthesis. Seven faculty members act as project supervisors. The research experience is conducted in the summer on a full-time basis and continues during the academic year. The project involves weekly seminar/discussion sessions where students are able to gain experience in oral communication. Technical reports are to be submitted upon completion of the project.